Integrated Approach to Teaching Psychobiology in the Undergraduate Laboratory

This laboratory sequence integrates studies of the behavioral, electrophysiological, histological, and neurochemical effects of medial septal lesions in rats. The course engages students in experimental design, hypothesis testing, and analysis and interpretation of data. Grant related equipment includes the instrumentation, hardware and software necessary to conduct and analyze passive avoidance behavioral experiments (Reflex-16 instrumentation) and neurochemical analyses (HPLC). The project will significantly enhance research opportunities for a number of young women and provide them with motivation to pursue careers in the sciences.